Recommender and Reputation Systems: Principles and Practices

Recommender and reputation systems process ratings from past users to guide
current users' behavior. Such systems provide a natural laboratory for the
study of large-scale social phenomena, including the provision of public
goods (the ratings themselves), and the role of reputation as a regulator
of trust and trustworthiness.

This project will focus on two widely used systems, eBay and Slashdot.
Usage logs provided by the two sites will be assessed in depth. This
analysis should reveal the social practices that have emerged surrounding
the provision of ratings, and the ways ratings actually guide users'
decisions about what to buy and from whom, and what messages to read.
Game-theoretic analyses of incentives will combine with the empirical
analysis to guide the design of potential system improvements.

This research should improve the functioning and public understanding of
web sites where millions of people already interact with each other. In
addition, it will provide fundamental insights into the workings of
impersonal social capital, i.e., productive social relations that emerge among
people who remain strangers rather than forming networks of long-term
relationships.